Aspects of Discrete Tomography

Herman
The investigator develops new theoretical results
(uniqueness, existence, and complexity theories) in discrete
tomography), new reconstruction methods (for the case of
absorption and for label distributions), and applications
(neutron tomography). To obtain these results, methods of
discrete mathematics, probability theory, and computer science
are applied, including modeling and simulation studies by
computers. The new problems that the investigator studies are:
(a) discrete tomography with absorption; (b) estimation of the
parameters of Gibbs priors to be used in binary tomography; (c)
direct recovery of label distributions from projection data; and
(d) mathematical problems of reconstruction in neutron
tomography.
Roughly speaking, tomography deals with the problems of
recognizing an object from a limited number of views of it, and
of discriminating between objects from a limited number of views
of them. Mathematically, the idea is to reconstruct a
multidimensional function that describes, having only a few
lower-dimensional samples -- projections -- of the function.
Discrete tomography deals with a special type of tomographic
inverse problem in which the function to be reconstructed from
its projections is discrete (i.e., has only a few elements in its
range of values). In the special case when the function is binary
(only two possible values), prior information can be used to
recover it from very few (e.g., only 2 or 3) projections.
Discrete tomography has some fascinating applications, for
example, in medicine, molecular biology, electron microscopy,
security, and nondestructive testing. In this project the
investigator studies problems in discrete tomography, develops
new methods to reconstruct functions, and considers applications
in neutron tomography. Other broad impacts include the
involvement of students in the work of the project, an
international collaboration with a faculty associate in Hungary
and jointly run research seminar at CUNY, and a workshop on the
applications of discrete tomography.